Elementary Particle Physics Using High Energy Accelerators

This proposal requests support for the research program of the high energy physics group at the University of Washington to continue their hadron collider work on [1] the D0 detector at Fermilab and [2] on construction of the ATLAS detector for the LHC program to be run at the CERN laboratory in Geneva Switzerland.
On the D0 experiment, the Washington group has major
responsibility for the D0 detector upgrade currently under way; specifically, the Level 3 Trigger / Data Acquisition System and forward muon system. The group is also committed to full participation in the installation and commissioning of the upgraded detector. In March 2001 the D0 detector is scheduled to resume data taking, and this group will have an ongoing major responsibility for operation of both the L3 Trigger/DAQ and forward muon systems. They are also committed to D0's Run 2 physics program and will work in the top and Higgs physics groups.
On the ATLAS experiment, this group has central
responsibility for the design of the critical support structure and kinematic mounts for the ATLAS forward muon chambers. They will fabricate a total of 96 forward chambers, of which about 48 will be complete in the period 2000 - 2002. This group has assumed the lead responsibility for the design of the control system for all of the ATLAS muon detectors. This work will start with the design and implementation of a control system for the muon test beam.